Exchange Rate Dynamics: Evidence from Intra-Daily Data and Survey Data

This study investigates two aspects of exchange rate dynamics. First, the intra-daily exchange rate changes will be analyzed, and second, various hypotheses on exchange rate expectations formation among investors will be tested using survey data. This type of fundamental evidence is necessary to develop better theories to explain international macroeconomics. The focus on intra-daily exchange rate changes will make it possible to determine which country had the most impact on exchange rate changes. The exchange rate market is unique in that the same commodity (currency) is being traded almost 24 hours a day due to the time differences among the major financial centers of the world, i.e., Tokyo, London and New York. By making the observational frequency finer, and thanks to these time differences, it will be possible to narrow down the factors that most affected changes in the exchange rate. The intra-daily analysis will be applied to the exchange rates among yen, dollars, pounds, and DM in the 1980's; and among yen, dollars, and pound rates in 1931-33. The ARCH model of volatility of intra-daily exchange rate changes in the 1980's will be modeled and estimated. It is well known that an investor's expectations are very important in determining the actual path of the exchange rate. If enough investors expect the dollar to fall and sell the dollar, then the dollar actually falls. Therefore, to understand exchange rate dynamics, it is essential to investigate how the investor's expectation is formed. Hypotheses on expectation formation will be tested with a new survey data set collected by the Japan Center for International Finance (JCIF). There are two advantages of the JCIF survey in Tokyo over the often-used MMS or Economist survey. First, respondents to the survey include not only dealers in financial institutions but also in the export and import industries. Heterogeneous investors may have different expectation formations. Second, the JCIF will provide individual responses, so that the rationality and efficient market hypothesis will be tested on an individual basis, not on the survey mean or median. It is widely believed that in the short- run, expectation formation is of the bandwagon type, while in the long-run it is of a regressive type. The study will test econometrically whether the short- and long-run expectations are mutually consistent.